A Combined Calculus-Based/Non-Calculus Introductory Physics Course Using The Workshop Physics System

The Workshop Physics system, in which traditional lectures and laboratories are replaced by interactive learning methods and micro-computer-based laboratory activities, will be used to provide a combined calculus-based/non-calculus introductory physics course. Additional interactive methods such as conceptual exercises, collaborative problem-solving, and multimedia technology will be incorporated into the existing Workshop Physics curriculum. This will result in improved student learning and more efficient use of instructor time.